Characterization of the Triplet States of Halogenated Porphyrins

The Experimental Physical Chemistry Program supports Valerie Walters of Lafayette College in her research studies on the triplet states of halogenated porphyrins using phosphorescence, triplet-triplet absorption and transient resonance Raman spectroscopies. The overall goal of these studies is to investigate the effect of various halogen substituents in the beta-pyrrole and phenyl ring positions on triplet state geometry, electronic structure and lifetime. Semiempirical calculations will also be carried out to aid in the spectral analysis. Porphyrins have long been used as catalysts in oxidation and photooxidation reactions. Recent work has found that halogen (chlorine, bromine, fluorine, iodine) substituents substantially increase the stability of porphyrin catalysts. Thus, much experimental and computational work has been performed to investigate the effect of halogens on the properties of the porphyrin electron ground state. However, very little work has been carried out on the excited (triplet) state properties, despite the fact that porphyrins are widely used triplet state photosensitizers for singlet oxygen. These studies will make a significant contribution to our understanding of the energetics of this increasingly important class of molecules.